Introduction to Engineering and Computers

9452822 Marable Tennessee Technology University will initiate a four-week, residential, Young Scholars project in engineering for 50 students entering grades 11 and 12. The students are primarily from the southern Appalachian region of the United States. The program will consist of individual research projects, field trips to various sites of engineering significance, and lectures and discussions in an Introduction to Engineering series, Introduction to Engineering Design, and Energy Utilization.